Parallel Jacobi Methods for Large Control Problems

The aim of this project is the development and implementation of parallelizable numerical methods for solving matrix Riccati equations that arise from large control problems. One effective and widely used approach to their solution is via the computation of the stable invariant subspace of an associated Hamiltonian matrix. Existing methods have one or more drawbacks: limited parallelizability, lack of structure-preservation, numerical instability, or slow convergence. In this project, new Jacobi type algorithms for Hamiltonian and other structured eigenproblems will be developed. Existing structure-preserving Jacobi algorithms suffer from poor convergence: they use 2x2 symplectic-rotations, which limit the positions on the off-diagonal that can be targeted for annihilation. By exploiting the correspondence between 4x4 matrices and the tensor square of the quaternion algebra, this proposal studies ways to overcome this restriction, and develop structure-preserving algorithms that have better convergence properties, while retaining numerical stability and parallelizability. The algorithms developed will be evaluated for speed and stability in serial and parallel settings. Improved parallel algorithms will enable scientists and engineers to solve larger control problems with greater accuracy. ***